High Performance Adaptive Optics for Astronomy in the Southern Hemisphere

AST 9987356
Abstract

Adaptive optics (AO) is a method for compensating image degradations produced by the turbulent atmosphere in real time. Under prior NSF a new technique called wavefront curvature sensing and correction was developed and refined, then subsequently modified to operate on the Gemini North telescope, becoming the first AO system to be used on an 8m class telescope with a monolithic mirror. The superb results obtained for the Gemini dedication conclusively demonstrate the usefulness of AO on large telescopes. At present good performance is available in K and H bands. This award will support an upgrade to 85 actuators that will extend this excellent performance to the J band, push AO technology to new levels and produce unique astronomical results with adaptive optics in the southern hemisphere on Gemini South. The 85 element system will be available for use by the general Gemini community.
***